Research Initiation: Reconfigurable Complex DSP Systolic Arrays

The VLSI realization of Digital Signal Processing (DSP) algorithms provides both new opportunities and design challenges. This work attempts to maximize the speed and reliability of such array structures for DSP by employing residue number systems (RNS) and a new fault tolerant mechanism. Several working algorithm specific integrated circuits (ASIC's) are being generated in both NMOS and CMOS technologies.